CRB: Metapopulation Structure of the Mexican Spotted Owl: Theory and Conservation Implications

9302247 Stacey Habitat fragmentation is one of the most serious factors threatening the preservation of biological diversity. As a result of human development, once continuous landscapes such as forests and wetlands have been altered and divided into small patches. This reduces population sizes of the plants and animals within each patch, and may make them more vulnerable to extinction. In this project, researchers will test predictions of the metapopulation model of Stacey and Taper. They will study the federally listed Mexican Spotted Owl in New Mexico, and owl whose survival has been threatened by logging and other changes to its habitat. They hypothesize that small and naturally fragmented populations of this owl are united by dispersal, and that immigration form one population can "rescue" other populations from extinction. Both field observations and several new molecular genetic techniques will be used to measure dispersal of juveniles and adults among four adjacent but isolated mountain ranges. %%% This Study will provide important new information on the role of dispersal and metapopulation structure in the persistence of rare species in arid environments, and new data needed by land management agencies for the development of successful management plans for the conservation of the Mexican Spotted Owl itself. ***